CISE Research Instrumentation: Exploiting Mixed PerformanceCharacteristics: A Heterogeneous Hypercube System

This award is to purchase two 80386 and two i860 nodes, two disk drives, I/O controller and 16MB memory to upgrade an Intel iPSC/2 hypercube. The equipment will support the development of a test-bed environment to support research projects including the verification of highly-complex protocols, the exploitation of parallelism with an integrated relational textual and image database, the development of a hardware design functional simulator, and the characterization of background clutter in natural scenes. George Mason University plans to upgrade an existing Intel iPSC/2 hypercube facility to enable research in heterogeneous, tightly-coupled multicomputing. The proposed equipment will be used to develop algorithms for applications requiring large data transfer.